Modeling International Migration Circulation

Many existing models of international population migration ignore the realities of migration circulation. These circulations begin with movement from an origin country to a destination country, which ultimately lead to a return movement of migrants back to their countries of origin. Existing migration models focus on initial origin-designation migration or on the subsequent return migration. This project will develop a framework that integrates all aspects of migration into a unified model of international migration circulation. Hypotheses will be tested which evaluate the effects of immigrant stocks and economic and behavioral factors on migration circulation. The study will employ a uniquely disaggregated data set of international migration to and from Germany from 1970 to 1989. A set of integrated logit models will be used to test the hypothesis that much international migration is described as a process of circulation. The results of this project will enhance the understanding of the dynamics of international circulations. By simulating the effects of different migration policy scenarios, the model will be able to differentiate the impact of national policy on migration over the short run and the long run.